Search for Higgs Boson and the Top Quark

This grant will support a single investigator who will collaborate with Italian physicists. He will analyze data from one of the worlds largest and foremost particle detectors, the Colliding Detector Facility at Fermilab. This award would provide funds for the investigator to travel to Padua, Italy to use the computing facilities of his collaborators and to work closely with them.